SBIR Phase II: Portable Production Process for Icy Regoliths by Vapor Deposition

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project will enable research and development on simulated moon surface materials that resemble the icy regolith on the Moon and other worlds by a large number of organizations that currently do not have access to such materials. Making realistic icy regolith simulants is beyond the reach of most organizations because they are produced by replicating the natural formation processes, that is they are produced under conditions that approximate the environment within the ultra-cold, permanently-shadowed areas in the polar regions of the Moon. Utilizing the resource potential of icy regoliths is a key to an enduring human presence in space. Accurate simulants of these materials are necessary to develop the technologies for studying, prospecting, and utilizing this resource. Greater access to these simulants will increase academia/industry partnerships and allow more rapid technology development through higher fidelity testing.

This SBIR Phase II project provide a location-dependent, custom production method to produce icy regolith simulants in large enough quantities in locations where they are needed by students, researchers, and engineers. Currently, the difficulty and cost of making realistic icy regolith simulants is preventing the higher fidelity testing required to reduce the risk and facilitate the development of in situ extraction technologies for critical resources. These simulants must be produced by re-creating the natural formation processes on the Moon and other worlds as closely as possible under very controlled conditions. Icy simulants must be custom-made and can include hazardous gases so they are expensive and can only be produced slowly in small batches. Cryogenic shipment after production is expensive, difficult, and limited to small amounts. This project will produce new equipment and methods of production that are portable. The solution will also make more realistic and complete icy regolith simulants in quantities large enough for effective research and development to take place. The equipment will be designed to be adaptable and have the capacity to make various physical forms of icy simulants with differing ingredients.